Uncertainty-Based Optimal Structural Design

9522654 Pantelides The concept of convex modeling provides an attractive alternative for analysis of uncertainty in systems for which a limited amount of information is available. The optimization algorithms to be developed will be used for minimizing the volume of a structural system under uncertain static loads, self-strained uncertainties such as fabrication errors, temperature gradients, support settlements, and a combination of the above uncertainties. Constraints on the joint displacements and member stresses will be imposed. Another type of problem with uncertainty is that of minimizing the volume of a structural rotational or transnational supporting springs. Constraints on member stresses and joint displacements are imposed. A different type of problem is one of minimizing the amplitude of the primary structure equipped with a dynamic absorber when uncertainties exist in the damping and frequency characteristics of the vibration absorber and the primary structure. The optimum design of structures with uncertain structural properties, under uncertain earthquake excitations will also be performed. Finally the minimum volume design of structures with uncertain soil- structure interaction properties, under uncertain earthquakes will be performed.